Digital Government: Connected Kids: Designing Database Software for Web Based Info Dissemination to Multiple Audiences

EIA-0091505
Teresa Harrison
Rensselaer Polytech Institute

Digital Government: Connected Kids: Designing Database Software for Web Based Info Dissemination to Multiple Audiences

In this project, computer and social scientist will collaborate with the city of Troy, NY. The focus will be on youth service educational and non-profit organizations to develop community information systems relevant to the topic area. Many sectors (youth, education, government, non-profit) will be involved in the project.

A software package named CIRCLE will be developed to enable design, authoring and maintenance of multimedia applications by multiple and non-technical content developers and user groups. Various focus groups will be used to test CIRCLE's abilities and potential. In addition to computer science, an important research element will be to study the social processes associated with the construction and use of information systems for community audiences.